Touch the Future Science, Math and Technology Displays

This project for six (6) months' duration will bring advisors and designers together to plan an environment of interactive touch-screen displays to draw high-school students and their parents into thoughtful consideration of careers in science, mathematics, and technology. Housed at Kennedy Space Center's Visitor Center and in keeping with the theme of space exploration, the visitor will become a crewmember on a future voyage and solve problems encountered on the journey via computer simulations.

Veteran astronauts will narrate the scenarios, since they have actually encountered unexpected problems in space. The proposed final exhibit will have six (6) stations, each featuring a different episode and levels of complexity of a common storyline. After solving the problem using math, science, technology and critical thinking skills, a registration mechanism will enable the student to request information on spedific careers and information about post-secondary schools that offer such training.